Minority Graduate Assistantship in Chemistry--Sharon Taylor

Sharon Taylor has been awarded a Minority Graduate Assistantship in Chemistry. Ms. Taylor earned the A.S. degree in chemistry from Southern University in Baton Rouge and the B.S. degree in chemistry from Louisiana State University. She is pursuing the Ph.D. at Texas A & M University in the area of Analytical Chemistry; Professor James F. Haw is serving as her advisor. The Minority Graduate Assistantships in Chemistry are viewed as an important infrastructural investment designed to broaden the participation, knowledge and experience of minorities and attract them into meaningful careers in chemical research and teaching.